Mathematical Sciences: Statistics and Probability Theory of Extremes and Stable Processes

This research addresses a wide variety of interrelated problems concerning extremes, sums of dependent variables and stable processes. Many of these mathematical problems have important practical applications. The research focusses on the estimation of the distributions of extremes and uses as its principal tool the weak convergence of a point process which records the extremes. The research in statistical inference for extreme values includes investigation of properties of the extremal index and estimation of marginal tail distributions for weakly dependent variables; the research on asymptotic theory for sums of dependent variables seeks to define large classes of processes for which convergence can be established; and problems in inference for stable processes considers harmonizable stable processes and the moving average stable process.